ATLAS Transition Radiation Tracker Instrumentation

This request for infrastructure from MRI/OMA will allow research groups of physicists and students at Hampton University to develop and construct a sophisticated tracking device: a Transition Radiation Tracker (TRT) for the ATLAS detector at the Large Hadron Collider (LHC) located at CERN, in Geneva, Switzerland. This proposal will allow underrepresented minorities to participate in the highest priority future experiment of the EPP program, in collaboration with physicists from other universities in the US and aboard, and in collaboration with nearby Jefferson Laboratory. Surface characterization and process control using keV X-rays; imaging applications, including biological imaging and imaging for inspections; detectors for astrophysical applications are possible future uses of these detectors.